Purchase of an EPR Spectrometer

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Yale University will acquire an Electron Paramagnetic Resonance (EPR) Spectrometer. The new instrument will support the research of major users in the Chemistry, Chemical Engineering, and Molecular Biophysics and Biochemistry Departments. Some of the studies that will exploit this instrument include a) EPR studies of photosystem II and Mn model complexes; b) site directed spin labeling studies of protein secondary structure; c) de novo design of metal ion binding sites in proteins; d) bioinorganic studies of actIV cyclase and transition metal uptake; e) characterization of metal oxide catalysts; and f) EPR studies of RNase P.

An electron paramagnetic resonance (EPR) spectrometer is an instrument used to obtain information about the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals which are often essential for the initiation of tumor growth and/or a variety of chemical reactions. These studies will have an impact in a number of areas, in particular biological chemistry.